Using Case-Studies to Teach Invention and Design

A course on technological invention and design is being developed to meet the needs of both liberal arts and engineering students. A collaborative learning environment is being developed in which faculty and students from different disciplines will work and study together. The case studies will be widely disseminated nationally.